NSF Young Investigator

9457903 Robicheaux This research involves the theoretical description of atomic and molecular states near the ionization threshold. Time dependent techniques will be studied for insight into the electronic dynamics. The direct calculation of experimentally measured parameters that include statistical errors will be undertaken for correlated systems. ***